Controlled Channels in Polyacrylamide Gels for Macromolecular Separations

9311901 Locke This project is on research to develop a new material for use in electrophoresis and other bioseparation techniques. The new material consists of a polyacrylamide gel with controlled channels that are formed by inducing gelation around liquid crystalline DNA solutions. Once formed, the gels will be characterized experimentally by measuring rates of diffusion and electrophoretic migration. Also, modeling and computer simulation of the transport processes will be performed. ***